INTEGRATING MODELING AND LABORATORY SESSIONS IN NEUROSCIENCE

Life Science Biological (61). An interdisciplinary team of faculty from Colleges of Engineering and of Arts and Sciences are collaborating to develop and teach a new course in computational neuroscience. The intellectual merit is to introduce more quantitative experience to students from biological and behavioral science while exposing students from quantitative sciences to some interesting questions and experimental techniques from the biological sciences. By collaborating, the faculty from both colleges will extend their expertise and be able to involve students with investigations of emerging questions in computational neuroscience. The new course represents a first step for defining a minor in computational neuroscience. For broader impact, a summer workshop is providing opportunities for other faculty to learn about the course so they can increase their own capacity to apply more mathematics within the biology curriculum at other institutions.